Industry/University Collaboration: Mixtures of Polar and Associating Liquids

This project is aimed at developing a predictive theory for the thermodynamics and phase equilibria of fluid mixtures in which molecular association, due to H-bonding and complexing is important. A simple and successful theory has been derived recently for such mixtures; this is developed for practical use in the form of an equation of state. Fundamental aspects of the research include the development of more realistic intermolecular force models and an extension to multiple binding sites in a molecule. The proposed equation of state uses a reference term that includes the effects of association as well as those of the repulsive forces. Extensive comparisons with experimental data and with existing equations of state are presented. In parallel, the investigators carry out both molecular dynamics and Monte Carlo computer simulations of such fluids, in order to test both the theory and the force models. Included in the investigations is a study of adsorption and surface tension at fluid-fluid interfaces for such fluids. This work is an Industry-University Collaboration between Cornell and the Exxon Research and Engineering Company. Existing equations of state are, almost without exception, based on the idea of a reference fluid of hard molecules (usually hard spheres) that exhibit repulsive forces only. Such an equation cannot describe substances in which molecular association occurs due to strongly attractive off-center sites. Such association occurs in a wide variety of industrially important substances. The current method of dealing with this problem is to use the existing equations of state with the addition of the "chemical" approximation, in which chemical reactions are postulated to account for the association. This introduces temperature dependent equilibrium constants into the equations. In practice, these may not be available from independent experiments and must be fitted to thermodynamic data. This results in a method of little predictive value, particularly for multicomponent solutions. The proposed work is aimed at replacing such methods by a physical approach that is soundly based in statistical mechanics and has greater predictive value.